Planning Grant - Center for e-Design: IT Enabled Design and Realization of Products and Systems

An Industry/University Cooperative Research Centers planning meeting has been awarded to determine the feasibility of Virginia Polytechnic Institute (VPI) to join the existing Center for e-Design. The research proposed at VPI will be to research and develop method tools that support the realization of a new design paradigm that can be used to develop new engineered products and systems. This new paradigm will allow design and product realization to be customer driven in a collaborative e-design environment and support transparent analysis, as well as virtual simulation and prototyping. The research that is proposed will also encompass considerations pertaining to the life cycle of the product or system under development.